Insights into Pacific Ocean Basin Seismicity from Long-Term Hydroacoustic Monitoring

Since 1991 NOAA/PMEL has monitored seismicity in the NE Pacific using Navy SOSUS arrays, and since 1966 using an autonomous hydrophone array in the equatorial Pacific. This project is an effort to use analyze these data to address questions related to the first-order patterns in seismicity, stress transfer and earthquake interactions.